Image Processing for Teaching: Development for National Dissemination

The grant funds a 4 year project to disseminate nationally the materials and techniques developed at the University of Arizona for image enhancement. These materials allow students and teachers to scan images, or select one of thousands already available, and do enhancement and analysis. The images are drawn from many fields and support exploration and discovery related to all area of science as well as many areas of mathematics. The Image Processing for Teaching project develops a curriculum for inservice workshops for teachers in grades 5 through 12. Multimedia materials on CD-ROM accompanied by video and print materials support the sites that adopt the technology. A national structure will disseminate the materials and promote further development of applications by teachers and students. An initial core group of 90 expert teachers will participate in the dissemination and training. The grant includes funds to support 80 teachers per year from either districts that cannot afford the workshops or those that teach targeted underrepresented groups.